Student Travel Support for the 20th IEEE International Conference on Network Protocols (ICNP)

This project provides student travel support for the IEEE International Conference on Network Protocols (ICNP)held in Austin, TX on Oct 30 to Nov 2, 2012. The project allows a selected set of US students interested in network protocols to travel to this conference and benefit from the talks and other events. ICNP is a premier conference in this area and exposure to students of cutting edge research is essential.